RCN-UBE Incubator: Planning a Research Network on Assessing Learning Technologies in Undergraduate Biology Education

This project will plan a research collaboration network to explore and share strategies used in assessing the effectiveness on student learning of technology interfaces between faculty and students in undergraduate biology education. New technologies, especially those involving distance-learning and Web 2.0 tools, are being incorporated into biology education, making many previous learning assessment tools ineffective. Thus new research tools and assessments must be developed to determine whether these technology-enhanced teaching strategies indeed improve student learning. For the purpose of this project, we will limit the definition of "technology in biology education" to those technologies that serve as an interface between and among faculty and students. These technologies include web-based lessons, video conferencing, podcasting, social networking and other similar technologies. This project will fund two planning meetings which will identify the major research and assessment concerns on this topic in order to prepare a proposal for a Research Collaboration Network to address these issues. The planning meetings will be held at the University of North Texas in Denton, Texas in the spring and early summer of 2010.

The intellectual merit of the proposed activity includes bringing together experts from biology, instructional technology, assessment, and virtual networking. The group will plan the necessary infrastructure and assessments that will be needed to support and disseminate an interdisciplinary research community focused on assessing the effectiveness of learning technologies in undergraduate biology education. Since a growing number of undergraduate students are exposed to technology-enhanced instruction in their biology courses, this project will have broader impact by determining the types of assessments and collaborations needed by the community of scholars who are engaging in research on technology-enhanced biology education. The planning workshops and focus groups will engage biology and education researchers from across the country who represent a variety of institutions, disciplines, and backgrounds.

This project is supported jointly by the Biological Sciences Directorate and the Division of Undergraduate Education.